An Undergraduate Research Instruction Program in the Behavioral Sciences

The Behavioral Science Program at SUNY-College at Plattsburgh has developed a research instruction program whose goal is to make participation in research accessible to a larger number of students. Computer systems acquired through this project will support research instruction in five behavioral science research areas, with researchers in anthropology and psychology initially involved in conducting research seminars. Computerized images of artifacts as an aid in analysis and instruction, research in facial recognition and eyewitness identification through construction, editing, combining and displaying computerized images, and experiments in human memory and social judgment in real or simulated group settings are among the activities to be carried out. The results of student research projects will be published and presented at professional meetings.